REU: Undergraduate Research Participation in Biochemistry

This is a Research Experiences for Undergraduates project. It provides research experiences for eight students at University of New Hamphire. Students will participate in projects involving biochemistry.